Birational geometry of complex projective varieties

The proposed research deals with topics in Higher Dimensional Complex
Algebraic Geometry. It is mainly focused on natural questions in
the birational geometry of complex projective varieties
such as the study of the pluricanonical maps of varieties of general type
and understanding how rational curves and holomorphic 1-forms influence the
geometry of these varieties.
Some of the main problems to be investigated are: For what values of m is the
m-th pluricanonical map of a variety of general type birational?
Are the fibers of a resolution of a variety with mild singularities always
rationally chain connected?
Is it the case that on a smooth projective variety of general type,
holomorphic 1-forms always have non-empty zero set?

The classification of complex algebraic surfaces was initiated by the
Italian school at the beginning of the twentieth century. Its main features
have been long understood.
In Higher Dimensional Complex Algebraic Geometry, one hopes to extend
the theory surfaces to dimensions grater or equal to three.
The minimal model program, for example aims to show, as in the case of
surfaces, that any variety is either covered by rational curves or
birationally equivalent to a minimal model.
The minimal model program is complete only in dimension 3, but it has
inspired many important advances in algebraic geometry.
This project hopes to answer some of the questions and conjectures that
naturally arise in this context.